Crustal Thinning and Magmatism on the U.S. Atlantic Rifted Margin: Imaging with EDGE Seismic Data

9503134 Holbrook This project will process and interpret seismic data collected along the margin of Virginia, concentrating on tying previously-studied marine data to a corresponding dataset on land. This will produce new images of the transition between continental and ocean crust, permitting better constraints on the processes that occur during continental breakup. A surprising finding from the existing data is the presence of very thick igneous units, suggesting far more ***